Undergraduate Microfabrication Laboratory

Engineering - Electrical (55)

The project adapts and implements microfabrication techniques from successful programs at Georgia Institute of Technology and Virginia Polytechnic Institute as it develops two undergraduate laboratory intensive courses. The first course introduces students to microfabrication techniques where they learn clean room operations and safety procedures and ultimately produce and test a MOS transistor. The second course presents more complex fabrication techniques that lead to the production of a simple microelectromechanical component (i.e., a MEMS device). An evaluation panel made up of faculty members, who have developed similar laboratories and courses, is assessing the program. The panel is examining student course evaluations, course content, and student work. The PIs plan to report the results of the development and evaluation efforts in journal and conference publications and to develop a web-based microfabrication reference tutorial.